US Africa Workshop on Mechanics and Materials; January, 2005; Cape Town, South Africa

Program Summary
The proposed program will organize a U.S./Africa Materials Workshop in Cape Town,
South Africa. The workshop will be organized by Professors Wole Soboyejo and Alan
Needleman in the U.S., and Professors Daya Reddy and Bob Tait in South Africa. It will be held
during the second week of January in 2005. It will feature invited speakers from the U.S. and
Africa that are working at the interface between mechanics and materials. The topics of the
workshop will include: micro-electro-mechanical systems; nano-mechanics and nano-materials;
thin films; dislocation mechanics and plasticity length scales; heterogeneous materials and
infrastructure materials. Short courses on mechanics and materials will also be organized for
students at the end of the workshop. Following the workshop, the U.S./Africa Materials Institute
will implement collaborative research plans that will be developed in panel discussions that will
occur after the technical presentations.